Theoretical Study of Few-Body Processes

Collision physics is entering an incredibly exciting time as a result of recent new
experimental advances such as the COLTRIMS (cold-target recoil-ion momentum
spectroscopy) method. With this method, one can obtain full three-dimensional,
absolute cross sections for ionization of atoms and molecules by an arbitrarily charged
particle. Details such as these were basically impossible to obtain prior to this
experimental breakthrough and place new and heavy demands on theorists to compute,
understand and eventually predict the results of such experiments.
This research is to theoretically and computationally examine several open questions in
the field of charged particle ionization of atoms and molecules with both one and two
active electrons using distorted wave methods and apply them to targets of interest to
experimentalists using COLTRIMS.